Estimating, Improving, and Measuring the External Validity of Effective STEM Programs

The gap between what is known to be effective in STEM education and what is
actually practiced in U.S. schools and colleges is growing. The present
research applies concepts drawn from theorizing about the external validity
of programs and pairs them with diffusion of innovation theory to
conceptualize and operationalize the Model for Accelerated Diffusion. This
model will be applied to the topical domain of effective STEM education
programs as a promising means to close evidence-practice gaps.

After conceptualizing a best fit between program external validity and
diffusion theory, the research team will define an applied field test of
the new model's predictive utility for effective STEM education programs.
The team will then specify a STEM topic of study, identify the program
population, derive a purposive sample of effective STEM education programs,
identify STEM teacher networks, and determine the research design for a
field test. The research team will also seek out STEM education
researchers as potential collaborators for a follow-up field test of the
model and its approach for accelerating the diffusion of proven pedagogical
innovations.